Structural Covariates of Crime Rates: Studies of Invariance

Social scientists have long sought to explain both the variation of criminality and personal victimization across individuals and, as importantly, across time and space. Despite the fact that numerous studies of structural covariates of crime rates for various subnational units have been published over the past several decades, little is known about the extent to which empirical relationships found in one study with one level of analysis and at one particular point in time generalize to other levels of analysis at other time points. To date, most studies focusing on crime rate variation have capitalized on rather unique patterns of association related to particular samples. In this research, Drs. Land and Cohen examine the social structural (economic, demographic, social) determinants of crime rates across levels of aggregation and time. They will use a data set created as part of a previous NSF project which contains information on seven FBI Index crimes and numerous structural covariates for 1960, 1970, and 1980 and at three levels of aggregation (cities, SMSA, states). Several statistical techniques will be used to test the empirical regularities between social indicators and crime rates. On the basis of an assessment of the status of each covariate, additional thought and work will go into consideration of possible aggregation effects that might account for discrepancies across the levels. The research should result in the most comprehensive study of crime rates in the U.S. over this period. In addition, the questions that will be addressed are fundamental to theory construction and methodology in criminological research. As a contribution to theory, the study will provide tests of the constancy in relationships offered by proponents of several different causal orientations. As a contribution to methodology, it will demonstrate the inherent limits to regression-based explanations of crime rates and the problem of using highly correlated measures to understand differences in crime rates. Also, the study should add to research practice by inspecting relationships between panel and cross-sectional models.